Dielectrometry Sensors and Algorithms to Monitor Moisture Dynamics and Other Impurities in Transformers

9523128 Lesieutre New captive sensors can measure distributions of conductivity and permittivity in dielectrics. Each sensor has a set of interdigitated electrodes which impose a spatially periodic source of voltage at temporal frequency f and spatial wavelength. With an excitation that is periodic in space, the fields decay in the perpendicular direction with a penetration depth equal to the spatial wavelength. One set of electrodes are driven with a variable frequency AC voltage, and a high impedance measurement is made of the induced voltage on the alternate set of floating electrodes. The magnitude and phase of the floating voltage depends on the dielectric permittivity and electrical conductivity of the medium adjacent to the sensor. From such gain/phase measurements as a function of frequency for different wavelength sensors, computer algorithms can calculate spatial profiles of the permittivity and conductivity. With calibration of permittivity and conductivity dependence on other physical variables such as moisture, temperature, concentration of combustible gas, concentration of trace impurities, etc., it is impossible to measure spatial distributions of such physical quantities as a function of time. Recent EPRI funded research has performed the preliminary calibration between moisture and temperature to conductivity and permittivity so that the sensors can be used to monitor the time and space dynamics of moisture in oil impregnated transformer pressboard. The proposed research is to develop efficient computer algorithms that can extract the pressboard moisture as a function of time and space in transformers so that this monitoring system of trend analysis and advanced diagnostics sponsored by EPRI and several electric utilities. Other research tasks propose to extend the capability of the dielectrometry sensor to include the investigation of special encapsulating coatings that are selectively absorbing or reactive to combustible ga s and other trace impurities in transformers such as anti-oxidants, proposed anti-static additives such as benzontriazole (BZA), and other impurities resulting from aging and corrosion. ***